Combinatorics in Cohomology and Computation

This research plan is divided into three projects, each of which
combines combinatorics with cohomology and computation in some way.
The first project deals with certain systems of partial differential
equations defined by a combination of discrete convex polyhedral data
and continuous parameters. These `hypergeometric systems' provide a
fertile source of examples for the more general theory of holonomic
systems, and the goal is to shed light on how their solution spaces
vary in continuous families, using the algebraic theory of local cohomology.
The second project applies a computational perspective to the homological
algebra of injective resolutions. It aims to demonstrate that exerting
sufficient combinatorial control over the maps in injective resolutions
of finitely generated modules over polynomial rings can make effective
computation and storage of these resolutions possible, even though
injective modules are themselves seemingly intractable. The final
project places summands in combinatorial formulae for certain
universal cohomology classes in bijection with components in
Grobner degenerations of orbit closures for algebraic groups. This
degeneration technique should provide a geometrically positive
proof of the Buch-Fulton conjecture for quiver coefficients, which
generalize the famous Littlewood-Richardson coefficients.

Combinatorics, the study of discrete structures, arises as an
organizing principle in widely varying contexts throughout the
sciences, including mathematics, computer science, physics, and
biology. Applications of combinatorics occur not only when the
original problem is itself discrete, but frequently also when the
original problem deals with continuous phenomena. For instance, it
can happen that a single type of discrete structure can be imposed
universally upon a variety of continuous systems. This kind of
framework often lends deep insight into the nature of such systems
and their interconnections. Combinatorial frameworks can also
endow certain special systems with enough order to bring previously
intractable problems within grasp, conceptually or computationally.
Conversely, within many fields, understanding certain special
systems whose parameters are defined in a combinatorial context can
lead to methods applicable in general. The projects outlined here
will broaden the understanding of how discrete structures arising
in these ways can control phenomena in the areas of differential
equations, homological algebra, and algebraic geometry.